Small Grants for Exploratory Research: Gas Separations for Process Improvement by Inorganic Hollow Fiber Glass Membraneat Elevated Temperatures for Waste Reduction

The project explores the feasibility of using hollow fiber glass membranes for waste reduction through process improvement. One application is separation of H2S and H2 at high stream temperatures (400 - 600F), to provide a more concentrated H2S - stream as a byproduct and to make the process more energy efficient. A second application is the separation of NH3 from H2S in a sour water treatment process. By allowing the separation to take place at a higher temperature, the process for sulfur recovery will be important because of the removal of NH3. Furthermore, the recovery of NH3 in high purity through the novel membrane separation process would reduce both pollution and the process costs. The project involves measurements of membranes selectivity and evaluation of process parameters. The project is an SGER grant in the emerging NSF program on studies of Environmentally Benign Manufacturing. This NSF program is a forerunner to a planned NSF-CCR (Council of Chemical Research) joint venture.